Harmonic Analysis and Linear Elliptic Equations

ABSTRACT

This proposal has two parts. In part one, the set of problems
concerns multiparameter Fourier analysis, and, in particular,
a set of questions about multi-linear operators and commutators.
The goal is to carry out the multi-linear theory and the
Coifman-Rochberg-Weiss commutator theory to the extent possible.
In part two, we consider a collection of problems concerning
elliptic divergence form or non-divergence form operators with
non-smooth coefficients.

The proposal concerns a set of questions and problems in the
general area of analysis and partial differential equations.
The answers to these questions will impact scientific inquiry
in any field which uses tools from "harmonic analysis" to
investigate questions. Such tools have proven to be valuable
in every area of the physical sciences and in many areas
of the life sciences.